Instrumentation for Undergraduate Neurobiology Laboratory

This project aims to improve instruction in neurobiology through the purchase of electrophysiological instruments, such as preamplifiers, stimulus isolation units, micromanipulators and storage oscilloscopes. The equipment will be used in new exercises designed for the neurobiology laboratory course, including: 1) the compound action potential and sensory coding in cockroach giant axons; 2) the synaptic physiology of an insect neuromuscular junction; 3) intracellular physiology and single-cell labelling in the Helisoma buccal ganglion; and 4) the manipulation of cell membrane potential in muscle cells. Its additional use by students involved in Honors and independent research projects will broaden the opportunities for undergraduate research.